Homogenization-Based Design of Textile Reinforced Polymer Matrix Composites for Civil Infracture and Aerospace Applications

9713335 Swan Integrated analysis, design, and production methods are developed for new generations of composites with continuous, three-dimensional fiber reinforcing geometries. Continuous three-dimensional reinforcing geometries (textiles) hold the possibility of providing new generations of FRPs with dramatically enhanced mechanical performing characteristics. Systematic analysis and optimization techniques are employed to determine the topology of fibrous textile in polymer matrix composites which can maximize their three-dimensional stiffness and strength performance characteristics. ***